U.S.-Chile Cooperative Research on Proteoglycan Sulfotransferases

This award supports cooperative research on proteoglycan sulfotransferases between Dr. Carlos Hirschberg of the University of Massachusetts Medical School in Worcester and Dr. Enrique Brandan of the Catholic University in Santiago, Chile. The effect of these enzymes on the sulfation of proteoglycans is important because biological processes such as blood clotting and cell growth depend on these sulfated protein-carbohydrate complexes. Antibodies will be obtained against the sulfotranferase enzyme, key to the sulfation of proteoglycans and the substrate specificity will be determined for the enzymes. These studies will lead to an understanding of the biosynthesis of the proteoglycans through the regulation of the sulfation reaction. Dr. Brandan has already purified N-heparan sulfate sulfotransferase in Massachusetts and now will purify O-heparan sulfate sulfotranferase from rat liver in Chile. The antibodies will be prepared in Dr. Hirschberg's laboratory while the immunohistochemistry will be done by Dr. Jurgen Roth of the Biocenter in Basel, Switzerland which adds a multilateral aspect to this work. Both principal investigators have good track records and have worked together successfully so both laboratories will benefit from the collaboration. Dr. Hirschberg will gain Dr. Brandan's extensive experience in enzyme purification and Dr. Brandan will benefit from the use of the facilities at the University of Massachusetts and will strengthen his new research program in Chile. This is a good example of the benefits of international cooperation in science. By providing partial support for Dr. Brandan while in the U.S., this award will help fulfill the objectives of the Science in Developing Countries Program providing benefits to the U.S. as well as to the Chilean collaborator.